Symplectic Topology, Symplectic Submanifolds and Floer Theory

Abstract

Award: DMS-0405994
Principal Investigator: Ely Kerman

This proposal is comprised of three projects which concern the
relation between various invariants of a symplectic manifold and
the periodic orbits of the Hamiltonian flows which it supports.
Recent work by Kerman shows that one of these invariants, the
Hofer-Zehnder capacity, is finite for tubular neighborhoods of
certain symplectic submanifolds. Using a decomposition theorem of
Biran, this implies several new kinds of symplectic intersection
phenomena for compact Kahler manifolds. The goal of the first
project is to study these new intersection results which suggest
that many basic symplectic properties of a compact Kahler
manifold are determined by the Biran decompositions it
admits. The second project is a joint effort with V.L. Ginzburg
and B. Gurel. It involves the construction of a generalized
version of Hamiltonian Floer homology in which periodic orbits in
different homotopy classes are allowed to interact via a
generalized Floer differential that counts perturbed holomorphic
curves with punctures. The construction is motivated by the
Symplectic Field Theory of Eliashberg, Givental and Hofer. The
resulting theory should also have a rich algebraic structure, as
well as a variety of applications including new calculations of
the Hofer-Zehnder capacity for weakly-exact symplectic
manifolds. The third project is a program to prove a conjecture
which asserts the existence of periodic orbits on all level sets
near a nondegenerate symplectic critical submanifold of a
Hamiltonian. This is a generalization of some similar conjectures
of Arnold which concern periodic orbits of a charged particle
moving in a magnetic field. The first step is to construct a
Floer-type invariant for the underlying variational
principle. Once it is rigorously defined, this should quickly
lead to many new existence results. It is also hoped that this
invariant can be used to augment Symplectic Field Theory by
allowing one to split a symplectic manifold along certain
hypersurfaces which are not of contact type.

Hamiltonian flows are used to model many important physical
systems in which energy is conserved. Such systems include
planets and satellites moving under their mutual gravitational
attraction, a charged particle moving in an electro-magnetic
field, and the flow of an incompressible ideal fluid. These
motions are often quite complex and one way to begin to
understand their global behavior is to look for repeating
patterns, i.e., periodic orbits. While most Hamiltonian flows
have many periodic orbits, it is usually a difficult problem to
establish their existence at a fixed energy level. This problem
is a central theme in the study of Hamiltonian flows and, in
modern times, has been shown to be deeply related to the shape of
the space on which the flow is defined. The projects in this
proposal study various aspects of this relation. In the first two
projects we use Hamiltonian flows to define and compute
symplectic invariants. The last project involves the construction
of a new symplectic invariant which should lead to new existence
results for periodic orbits of Hamiltonian flows which describe
the motion of a charged particle in a magnetic field.